Measurement of Vector Magnetic Fields, Sunsport Motions, and Doppler Fields, and Observations of Micropores

The proposal is to continue the studies of the Sun at the Big Bear Solar Observatory, exploiting the excellent observing conditions and specialized solar instruments. The data obtained are then studied at Caltech. They propose to: 1) continue comprehensive observations of the Sun in various wavelengths, and of the Doppler and vector magnetic fields. 2) continuous measurements of vector magnetic fields and velocity fields in active regions and magnetic movies in Ho to understand the causes of solar flares. 3) study new data showing a strong influence of sunspot motions in causing flares. 4) study the motions and flows in sunspots to understand how they form and what keeps them stable. 5) observe solar flares in the infrared helium line, hitherto not possible on a regular basis. 6) continue our BEARALERT program of electronic warning of high probability of solar flares. 7) study important details of sunspot structures. 8) make round-the-clock observations of solar magnetic fields to understand their evolution and development.